SBIR Phase I: Solid-State Lasers Based on Transition-Metal Doped Zinc Chalcogenide Hosts

Coherent Technologies Inc. will develop compact, efficient, robust solid state lasers operating in the near and mid-infared spectral regions, that provide multi-watt output power, broad continuous tunability, and room temperature operation. These lasers will be based on chromium and cobalt-doped zinc chalcogenide hosts, and will play an essential role in a variety of applications including remote sensing, spectroscopy and in medical science in both surgical and dermatological use.